Development and Extension of the Learning Rate Budget Concept

This proposal outlines an approach for developing better methods for building learning curves in industry and for understanding the process of learning in manufacturing. The topic is considered to be important and the researchers well qualified, with an unusual mix of theoretical and applied skills. In particular, the researchers' prior experience should provide access to industry that is necessary to successfully test their ideas. The specific focus of the proposed research addresses some of the most critical practical roadblocks to the use of learning curves for cost estimation, and thus the project could yield important results for engineers and decision makers working in this area. In addition, the basic theory behind the proposed research has been quite well worked out, with funding requested for an investigation of the applicability and validity of the learning rate budget concept. This mix of operational and theoretical relevance is very appealing to the DRMS program and is considered to be necessary if learning rate concepts are to become a practical tool for increasing the efficiency of industry.